Cascade Topology Seminar

Abstract

Award: DMS-0803213
Principal Investigator: Steven A. Bleiler

This grant partially supports the speakers and participants at
conferences of the Cascade Topology Seminar (CTS). During the
three-year grant period May 1, 2008 - April 30, 2011, meetings of
the CTS are scheduled at semiannual intervals. These conferences
will be held at various universities in the Northwestern United
States and Southwestern Canada. Universities currently active in
the CTS are the Universities of British Columbia, Calgary,
Nevada-Reno, Oregon, Puget Sound, Victoria, and Washington, and
Boise, California-Chico, Oregon, and Portland State Universities.

The basic goals of the CTS include providing for frequent
contacts between workers in similar fields, to allow participants
to keep abreast of recent developments by bringing in speakers
from outside the region, to enable graduate students and
topologists in the Pacific Northwest and Southwestern Canada to
hear, consult, and possibly collaborate with the outside speakers
and members of other institutions, and to provide an opportunity
for local people to lecture on their own work. Topics covered
are not limited, however, the interests of the various organizers
tend to be mirrored by the interests of the participants. Thus,
the seminar programs usually concern algebraic, geometric, or low
dimensional topology, differential or algebraic geometry, or
combinatorial group theory. The CTS also coordinates its
activities with the Pacific Northwest Geometry Seminar and the
Western States Geometric Topology Workshop with whom joint
meetings have occasionally been held. The URL for the Cascade
Topology Seminar is http://www.mth.pdx.edu/events/cts/.